MRI: Acquisition of Interactive Visualization Tools for Supercomputer Models

This project, acquiring a visualization facility (vizwall with high resolution display and high volume storage system to visualize large size data generated from diverse research activities), models polar ice sheets, oceans, atmospheric turbulent boundary layers, and geodynamics. The facility, whose main components consist of a visualization wall, a PRISM visualization server, and RAID storage disks, will be integrated to the university's existing supercomputer cluster.